Group Travel Grant for the Doctoral Consortium to be held in Conjunction with IEEE Conference on Computer Vision and Pattern Recognition (2019)

This grant partially supports the participation of students from US-based institutions in the Doctoral Consortium at the IEEE Conference on Computer Vision and Pattern Recognition (CVPR) 2019 in Long Beach, CA. CVPR is the premier annual conference in computer vision with over 6000 senior, junior and student participants from all the world. The grant helps the career development of some of the brightest junior researchers in computer vision, contributes to the research community in general by drawing attention to an important aspect of graduate student development, potentially increases the number of active researchers and educators in STEM, and ensures that the computer vision community, through its recent graduates, makes fast advances in solving problems that will benefit society as a whole. The Doctoral Consortium aims to have representation from a diverse group of participants in terms of gender, ethnic background, academic institution, and geographic location.

NSF support covers some of the costs for 15 selected US-based graduate students to attend the Doctoral Consortium and CVPR conference. The Doctoral Consortium is to highlight the work of senior PhD students who are within six months of receiving their degrees (including recent graduates), and to give these students an opportunity to discuss their research and career options with faculty and researchers who have relevant expertise and experience. The opportunity to receive advice on their research work and career plans from experts from different institutions, and with potentially different perspectives, is often not available internally at one's own institution. Participants and recipients of travel support are selected by the 2019 CVPR Doctoral Consortium co-chairs. Travel awards partially cover any admissible conference-related costs such as registration, airfare, lodging, and board. This year's Doctoral Consortium features a poster session, one-on-one mentoring, and panel discussion. These components were introduced in past CVPR Doctoral Consortium and were well received.